Instrumentation Workshops for Two-Year College Chemistry Faculty

Faculty from two-year colleges across the United States will be trained on the theory, techniques, and laboratory use of state-of- the-art chemical instrumentation in a series of one-week workshops. For each of two summers, 11 workshops will be offered: four on the East Coast, sponsored by Northern Virginia Community College and George Mason University; four in the Midwest, sponsored by Sinclair Community College and the University of Dayton; and three on the West Coast, sponsored by Shoreline Community College and Western Washington University. A total of 144 two-year college faculty will be involved as participants. They will select instruction from among atomic absorption, flame emission, nuclear magnetic resonance, Fourier-transform infrared, ultraviolet/visible diode array and gas chromatograph/mass spectroscopies, vapor phase and high performance liquid chromatography, computerized data acquisition and treatment, and electrochemical methods.